Undergraduate Research

9502584 Haxton A summer internship program in physics will be initiated at the University of Washington. Student will be recruited nationally, although many are expected to come from the Pacific Northwest. Each student will have a research supervisor, and three faculty will act as mentors for the group. Numerous professional and social events will be organized. ***